Workshop for Mineral Physics Consortium at the Institute of Geophysics and Planetary Physics-Scripps Institute of Oceanography, Winter 2001

0110248
Weidner

This award provides partial-funding support for a workshop to discuss research facilities needed by the mineral physics research community and to begin the process of defining a consortium organization to manage those shared facilities. The workshop is to be held 2-4 February 2001 at the Institute of Geophysics and Planetary Physics at the University of California, San Diego.
***